Circulation and Deep-Water Ventilation in the South China Sea

9502984 Shaw In this project, the PIs will carry out a modeling study to simulate dynamical processes in the South China Sea, and to examine their dependence on annual and interannual variations of the monsoon winds and the hydrographic conditions in the Kuroshio. Focus will be on the surface circulation, deep circulation, deep- water renewal, and the formation of the South China Sea Warm current and a cold-water tongue in response to relaxation of monsoon winds. An existing model will be modified by substantially increasing its resolution to account for mesoscale processes. Realistic wind, current, and thermodynamic forcing will be used. ***